Presidential Young Investigators Award

This Presidential Young Investigator Award is to study the mechanics of waterjet cutting. The fracture process due to abrasion during the cutting of polycarbonate specimens will be recorded on a ultra high speed framing camera. Detailed fracture mechanics analysis applied to abrasive water jet cutting will reveal information on the jet penetration process and material behavior.